Mathematical Sciences: Algebraic and Geometric Topology

This project involves the use of surgery theory to study symmetries of manifolds, with emphasis on finite groups of symmetries of the sphere. The project includes four parts. The first part studies the role of the rational numbers in geometric topology and surgery theory, and in particular aims at the determination of the rational homotopy types of manifolds with finite fundamental group. The second part involves a mix of knot theory and high-dimensional techniques, and this mix could lead to an interesting synthesis. The third part examines connections between group actions and numerical invariants in L-theory, which in turn leads to number theory. Finally the last part is algebraic considerations in L-theory and Galois cohomology. Such interactions between algebra and topology have been quite fruitful in the past.